Mathematical Sciences: Models for Phase Transitions

The general objective of this project is to understand and to predict the surface structures and geometries of crystals which have been subjected to various kinds of thermal or mechanical treatments. The principal investigator is also interested in analyzing the behavior of defective crystals. These problems concentrate on areas that are the subject of intense work of material scientists but they escape the framework of classical mathematical theories. Therefore, accomplishing these goals is not only important for the industry and technology but it also contributes to the advance of mathematics, since it requires manipulation of very recently developed mathematical tools and maybe the introduction of new ones.